CAA: Effects of Elevated CO2 and P Availability on Growth, Nutrient Use Efficiency (NUE), and Antiherbivore Defensive Characterisitics of Neotropical Mangroves

9407800 McKee This is a project to investigate growth and physiological responses of wetland species to anticipated effects of global climate change. The PI will spend three months at the University of Aarhus, Denmark, to conduct a study on the response of mangroves to elevated CO2 and nutrient availability. Climate conditions, assimilation and exchange of nutrients and metabolic gases are controlled and continuously monitored at the Institute of Biological Sciences' PhytoNutriTron Facility, an advanced system for conducting ecophysiological experiments with plants.